MRI: Acquisition of Environmental Science Research Equipment to Provide REU Participation and Enhance Teaching Resources at Northwest Indian College.

Poole
0520973
The main thrust of this proposal is to acquire environmental science research equipment to provide REU participation in various projects and further to enhance teaching resources at Northwest Indian College. More specifically, the applicant proposes to acquire instrumentation equipment, namely fluorometers, a spectrophotometer, a GC, a system to measure the TOC and an ion chromatograph, to support local environmental research projects and enhance Native students science education.